Fracture Mechanics of Articular Cartilage

This project will study crack propagation in articular cartilage in the underlying bone of joints using both analytical and experimental techniques. Finite element analytical models, using layers of two different materials, will be constructed to study the parameters that influence the fracture process. The experiments will be used to verify the theoretical predictions and to determine the morphology of impact-induced cracks in osteoarthritic animals. The work is expected to provide new basic information on the load bearing capability of layered soft materials. The eventual benefit will be a new understanding of fracture in joints, and in using this new knowledge to design novel impact resistant materials.